Elementary Students Doing Science With Real Scientists

The Emeritus Foundation plans to network volunteer retired scientists, engineers, and mathematicians with approximately 700 elementary school teachers in the Washington D.C. schools over a three year period. Building on an existing program, the project will enable retired professionals to supplement science and mathematics offerings at the elementary level by working closely with teachers and students both in and out of the classroom. Activities include classroom hands-on demonstrations, field trips, mentoring, and workshops for both teachers and volunteers to maximize the effectiveness of the other activities and to design instructional activities and materials. In addition, manuals will be created to assist with the training of new volunteers for the program. The project is designed as a model which can be replicated in other urban areas which have large populations of underrepresented students.